Advancing nonparametric regression: from convex multi-index and Bayesian models to BART and neural networks

This project addresses fundamental challenges in statistical modeling,
to develop more accurate and reliable methods for
analyzing complex data. As data becomes increasingly central to
scientific discovery, economic prosperity, and national security, the
need for advanced statistical tools is paramount. This research will
create new techniques in nonparametric regression, a field of
statistics focused on fitting models to data without pre-supposing the
relationship's form. It confronts three recurrent obstacles in
analyzing large datasets -- curse of dimensionality, ad-hoc tuning
choices, and the tension between flexibility and interpretability -- by
developing principled regression and density-estimation tools, thereby
improving our ability to interpret complex information. The work
forges new links between shape-constrained nonparametric methods and
neural networks, adapts ideas from image processing to statistics, and
also unites frequentist and Bayesian thinking through simple,
intuitive priors. The development of these methods will have
wide-ranging benefits in many applied fields. Furthermore, this
project will contribute to the education and training of the next
generation of statisticians and data scientists, ensuring that the
nation remains at the forefront of this critical field.

The investigator will develop a suite of novel approaches to
nonparametric regression. One area of focus is a new shape-constrained
method for multi-index convex regression, which is designed to
alleviate the curse of dimensionality and has close connections to
single hidden-layer neural networks. Another key component of the
research involves the systematic study of Total Generalized Variation
(TGV) regularization for regression and density estimation problems
that have both smooth and non-smooth components, a common challenge in
fields like image processing. The project will also investigate the
properties of the log-concave maximum likelihood estimator, with the
aim of proving its suboptimality in high dimensions under the total
variation distance. Additionally, the research will explore Bayesian
approaches with innovative priors, such as those based on Cauchy
processes, to model complex regression relationships and address the
issue of tuning parameter selection. Finally, the research will
develop Bayesian methods for mixed-derivative constrained regression,
leading to the creation of an additive regression tree and piecewise
linear fits for greater flexibility in multivariate settings. These
research thrusts will be pursued through a combination of theoretical
analysis and computational experiments, to produce
practical and principled solutions to outstanding problems in
nonparametric regression.